Magnetic Signatures of Current Systems in Equatorial Plasma Bubbles: Observations and Implications for Space Weather

Modern society depends on signals from global navigation satellite systems such as Global Positioning System (GPS) for aviation, emergency response, navigation, financial transactions, power-grid timing, and, increasingly, autonomous vehicles. The Earth’s ionosphere displays huge variability and often irregularities in the medium develop after sunset. These are sometimes referred to as plasma depletions or bubbles. As satellite signals pass through these plasma bubbles, they are scattered and weakened, degrading navigation accuracy and, at times, causing receivers to lose their signals entirely. This project studies the magnetic fingerprints of these bubbles, drawing on 12 years of satellite measurements. The research will test and develop a methodology to improve the lead time and regional precision of space-weather forecasts that protect navigation-dependent systems The project also supports the development of an early-career scientist. The work advances national prosperity, welfare, and security by strengthening the resilience of infrastructure that depends on reliable satellite signals, and radio wave communications.

This project will produce the first comprehensive statistical characterization of the magnetic signatures of equatorial plasma bubbles (EPBs) and their connection to plasma morphology, spatiotemporal variability, and GPS navigation impacts. The investigation exploits simultaneous magnetic field, plasma density, and GPS observations from both European and American satellites during high solar activity periods. Three science questions are addressed: (1) the dominant sources of magnetic perturbations in EPBs and how they vary with EPB morphology, altitude, and ambient conditions; (2) how these signatures vary with local time, season, longitude, and solar activity; and (3) whether magnetic observations can serve as a quantitative proxy for GPS receiver performance degradation. The project will deliver observational constraints for magnetohydrodynamic models, along with a 12-year EPB event catalog, a magnetic-perturbation database, and GPS performance metrics.